SBIR Phase II: Megabit-Per-Second Underwater Wireless Communications

The broader impact/commercial potential of this project is the introduction of high-speed
wireless modems usable subsea and significant cost reduction of deep-water operations ?
industry experts estimate savings of nearly 20% of deep-water operations through the
availability of subsea WiFi. Today, there is no broadband wireless communication available
underwater. In the deep ocean, remotely operated vehicles (ROVs) require a tether for
communication and a support ship for tether management; sensors and systems must either be
physically connected, or retrieved from the deep sea to exchange data. An ROV support ship
costs about $120k/day leading to over $7B spent on ROV support ships in 2013. The proposed
megabit-per-second technology would allow ROV manufacturers and operators to cut the
tether on many of their vehicles. Wireless ROVs can move unencumbered throughout coverage
area, piloted from anywhere (e.g. from Houston), without expensive surface vessels. The
proposed wireless modem technology connects ROVs and machinery to wired infrastructure,
enabling safe operation of heavy subsea machinery without the possibility of cables or tethers
getting tangled, causing damage or worse. This project will create 10 new jobs in the next three
years, with many more to be added as the production scales.

This Small Business Innovation Research (SBIR) Phase 2 project proposes to develop a faster
and more reliable wireless communication system for the sub-sea industry. Current state of the
art communication links for the deep ocean are either tethered, requiring long, bulky, and
expensive cables to connect machinery and systems, or have extremely low data rates, enabling only
the most rudimentary of tasks. The proposed underwater wireless communication
system will provide WiFi-like data rates in the Mbps (megabits/sec) range ? 100 to 1,000 times
faster than existing underwater wireless communication technologies - and enable video
streaming and real-time control of subsea infrastructure, machinery, and mobile underwater
vehicles. Since radio signals do not propagate far underwater, the proposed technology uses
sound waves, as whales and dolphins do, for communication. The speed of sound is 200,000
times slower than the speed of radio propagation, and mobile acoustic transmitters and
receivers hence suffer from severe Doppler distortion. The proposed technology dynamically
measures, tracks, and compensates for this distortion, to enable wireless communication at
data rates never before possible underwater.